Characterization of Eucaryotic Initiation Factor Interactionwith mRNA and mRNA Analogs

9303661 Goss The goal of this project is understanding the mechanism of eucaryotic protein synthesis. In particular a detailed study is planned of equilibrium and kinetic parameters characterizing the interactions of eucaryotic initiation factors with mRNA and oligonucleotides. Specific aims include: (1) study of initiation factor interactions with 5'-cap structures on mRNA, (2) study of the interaction of eIf-4B with mRNA, (3) explore interactions of various initiation factors together and separately with oligonucleotides (including ATP effects), and (4) investigate the kinetics of initiation factor interactions with oligonucleotides and mRNA. %%% Protein synthesis from many points of view begins with initiation, a process involving numerous protein factors and specific portions of mRNA. This is a contentious area of research because the system is so sensitive to experimental parameters and the choice of simplifications (ie. which components to employ). The studies planned are important because they will actually quantitate the interactions involved. This will ultimately make it possible to compare, understand, and integrate results from all labs, providing the experiments are clearly described to begin with. ***